Nitrification Rates and Controls: The Deep Oligotropic Nitrogen Cycle

Nitrification Rates and Controls: The Deep Oligotropic NitrogenCycle Water.column nitrification (NH.3 .. N0.2 and N0..2 .. N00.3) is thecrucial biogeochemical PON/DON sink and source of N0.3 for newprimary production. Measuring these rates directly will requireadvances in (1) measuring substrate levels, (2) detecting smallchanges in incubations, and (3) in situ incubation technology. The first real nitrification rates in the subsurface Nremineralization region will use new .1.5N..1.80.2 double.labellingisotope techniques. Natural rates of N0.2 oxidation will bedetermined from transformation of tracer.level .1.5N.1.80..2 to.1.5N..1.80.3; isotope dilution of .1..5N.1.8.0.2 and ıN0.2! pool size changeswill give rates of oxidation of NH.3 to NO.2. Time.course in situincubations will utilize a modified Taylor/Doherty SubmersibleIncubation Device (SID)...